Prefix Caching of Continuous Media Streams in the Internet

The dramatic growth in the popularity of the Internet, coupled with the increase in user access
speeds, has led to an increased demand for streaming media services in IP networks. However, the
heterogeneous and decentralized nature of the Internet, and the lack of end-to-end mechanisms for
quality-of-service guarantees, significantly hampers the effort to provide quality delivery and low
delay to all clients. The success of multimedia streaming applications hinges on developing new
techniques for providing both low start-up delay and high audio/video quality, without requiring
control over the entire path from the multimedia source/server to the end users. We propose an
approach based on active proxy services and prefix caching that has the potential of satisfying these
requirements. Proxy prefix caching is a mechanism whereby the first several seconds of a continuous
media (CM) object are stored at a proxy server close to a client. The prefix cache allows the proxy
to hide latencies introduced by either long end-to-end delays, the need to mask unreliable network
services, the need to process the stream arriving from the source, or the need to deal with scarce
resources between the proxy and clients.
In this proposal the researchers outline research investigating several aspects of this mechanism which in-
clude:

-Design and evaluation of preix caching mechanisms,

-Integration of prefix caching with bandwidth smoothing,

-Development of effective resource allocation schemes at the proxy, and

-Characterization of video sources and Internet traffic to feed into the these investigations.
The joint participation of AT&T Research and the University of Massachusetts provides a unique
synergy that would not otherwise be possible. AT&T provides access to resources in the form of
WorldNet traffic data, which supplies a snapshot of current CM workloads in the Internet, and
access to video testbed/prototyping platforms that are not readily available in academia. On the
other hand, UMass provides a much more long-term perspective than is possible at an industrial
lab, as well as expertise in the area of active services, bandwidth smoothing, and reliable transport
protocols.